An Undergraduate Digital Communications Laboratory Project.

Under this project, four Lab-Volt Model 8085 Digital Communications Training System will be used to upgrade the communication systems laboratory. Using this equipment, the students will be able to perform experiments in the areas of sampling, analog to digital conversion, spectral analysis of digital modulation schemes, signal to noise ratio, and bit error analysis of digital transmission systems and error correction code implementation. These experiments will enhance the learning of students in the digital communications area.